Rocky Mountain Discrete Mathematics Conference

Title: Rocky Mountain Discrete Mathematics Conferences

This project supports a 3-year sequence of Rocky Mountain
regional mini-conferences in Discrete Mathematics and its
applications. Each two day meeting features plenary talks by
outside experts on focused, contemporary themes in Discrete
Mathematics. The topics and plenary speakers are:

2003: Generalizations of interval graphs and their applications
Speakers: Jeremy Spinrad (Vanderbilt University)
Ann Trenk (Wellesley College)

2004: Tournaments
Brooks Reid (California State San Marcos)
Steve Kirkland (University of Regina)

2005:
Algebraic Graph Theory
Chris Godsil (University of Waterloo)
Willem Haemers (Tilburg University).

This project supports a 3-year sequence of annual two-day
conferences for mathematicians and computer
scientists in the Rocky Mountain region. The conferences (a)
provide an encouraging environment for young researchers and
graduate students, (b) inform researchers of some of the latest
developments in discrete mathematics, and (c) strengthen
collaborative, and interdisciplinary research ties among discrete
mathematicians in the Rocky Mountain region.